UMEB: Diverse Approaches to Environmental Research

A program is proposed to provide an multifaceted research and educational experience for undergraduate students in environmental biology. The program will attract freshman and sophomore students to experience environmental biology early in their academic careers. A diverse array of environmental biologists will serve as mentors for these students. Students will gain research experience in project ranging from hormonal control of mating behavior to the biogeochemistry of urban environments. Recruiting and retention efforts for this program will be focused on groups that are generally under represented in environmental biology. Participants are expected to include a mixture of Latino, American-Indian, and African-American students. The program will involve careful mentoring not only of students by faculty but by younger students by older students. Careful documentation of student participants will be used to assess and modify the program as a permanent university feature.